NMR in Undergraduate Chemistry Curriculum

The recent acquisition of a nuclear magnetic resonance (NMR) spectrometer by the Physical Science Department of Chaminade University of Honolulu is improving the undergraduate laboratory and directed research experience of undergraduate students. Freshmen and sophomores use the NMR spectrometer under close supervision; juniors and seniors use it on a regular basis for laboratory work and directed research. Nine different chemistry courses are affected, ranging from the introduction of NMR theory in the general chemistry course to detailed study and experimentation and research in the advanced chemistry courses.